RUI: Acquisition of high speed centrifuges, a liquid scintillation counter, and an automated sequence reader/ densitometer for isolation and characterization of macromole

This proposal requests $100,750 for acquisition of four major, multiuser equipment items: two high speed centrifuges, a liquid scintillation counter, and an automated sequence reader/scanning densitometer. The five research programs that support this application encompass a diverse assortment of basic biological research, including the areas of cell biology, evolutionary genetics, molecular biology, molecular genetics, and microbial genetics. A primary objective of each of these programs and many others within the Department of Biological Sciences is isolation, purification, and characterization of protein and nucleic acid fractions. The requested items are basic instrumental requirements for modern techniques in cell and molecular biology that are used to achieve this objective. As such, each of the five research programs rely heavily on the instrumentation requested in this proposal. The research projects that support this request involve undergraduate student research projects, M.S. thesis topics, and faculty research efforts. The equipment will significantly enhance the research, training, and instructional capabilities of the Department of Biological Sciences. Most of the faculty and graduate students in the department will require the instrumentation in their research. Undergraduate students working under faculty supervision will receive training and research experience with the equipment.